Proposal For A Non-Intrusive Flow Measurement System

Non-intrusive fluid velocity measurement allows the velocity of a fluid to be measured without disturbing the flow field. The laser Doppler velocimeter expands the capability of the existing flow measuring instrumentation at Oregon Tech. This laser-based measuring system is used by industry to measure the flow of fluids in the vicinity of rotating machinery and in wind tunnels, and will be used in a similar way at Oregon Tech. The laser Doppler velocimeter will be used in exercises involving, but not limited to, measurements in water and air, in wind tunnels and between rotating fan blades. The use of the laser Doppler velocimeter in our courses will enrich the experience of each student. The instrumentation will be used by at least 100 students per year.